Computational Uniformization

The investigator applies emerging computational methods in circle
packing to study conformal structures on surfaces, with particular
emphasis on complex, nonplanar surfaces. The global realization of
conformal structures which are local in nature is known classically as
uniformization. Circle packing methods have led to notions of discrete
uniformization which both mimic and approximate the classical notion.
However, the geometric nature of the discretization raises
computational issues outside traditional numerical mathematics. In
particular, uniformization is a self-assembly process which is
extremely challenging in practice --- for instance, with circle
packings containing millions of circles. In the central computational
work, the investigator implements a recursive framework for managing
this self-assembly which avoids global distortions while accommodating
efficient parallel implementation. The computational issues are not
considered in isolation, but rather in relation to ongoing
applications by the investigator and his collaborators to topics
including brain imaging, conformal tiling, dessins d'enfants, and
conformal welding. Of the many theoretical issues raised in
applications and experiments, the investigator pays special attention
to the notion of ``flow uniformization'' and to its potential use in
discrete conformal welding and shape analysis.

Surfaces --- a smooth soap film, the convoluted gray matter of the
brain, a faceted crystal lattice --- are ubiquitous in the natural and
physical sciences, engineering, computer visualization, and scores of
other areas. The tools for studying and describing surfaces
mathematically came out of work in the nineteenth century, with a
particularly rich geometric vein associated with angular measure going
by the name "conformal structure". Among the most celebrated results in
mathematics is the Riemann mapping theorem of 1851 which proved that
every surface with a conformal structure, no matter how complicated,
can be identified with one of three very simple familiar surfaces
--- a ball, a plane, or a disc --- in a way that preserves conformal
structure, that is, that preserves angles. Wonderful as this theory
is, and despite the availability of huge computational resources, it
has been only in the last decade that new mathematics in the form of
circle packing has provided a practical means for actually realizing
Riemann's theorem. The investigator develops the mathematical and
computational aspects of circle packing in the context of several
applications. Among these are the flattening of human brain cortical
surfaces to aid analysis by neuroscientists, the study of plane
shapes through a process known as conformal welding for use in
computer vision, and the construction of mathematical Riemann surfaces
in various topics which are now amenable to experimentation
for the first time.